NSF Young Scholars Pacific Region Program

The University of Hawaii at Manoa will initiate a six-week, summer residential Young Scholars project in the Agricultural Sciences for 26 students entering grades 11 and 12. The Pacific Region Program (PRP) will focus on science in general and the agricultural sciences in particular. Students will be exposed to contemporary societal issues (e.g. world food problems, environmental degradation, etc.) and will learn how knowledge from research is used in generating solutions. The PRP summer curriculum will consist of four inter-related active learning experiences: classroom presentations; field trips; research with mentors; and small group activities. Students will conduct individual research projects under the guidance of scientists and enhance their computer, library and communications skills. they will engage in analyzing and discussing real-world case studies and ethics in science and explore the career opportunities in the field.